Integrated Petrographic and Microbiological Microscope with Image Analyses Capabilities

This award will be used for a new state-of-the-art Nikon microscope with transmitted-reflected light, fluorenscence, phase contrast and Nomarski capabilities for geologic and microbiologic studies. The scope will also have high-resolution color and black and white digital cameras, and an advanced image analyses system that will allow documentation and analyses of spatially co-registered petrographic and microbiological observaions. Cost share provided by UW is about 14%. The new scope is needed for research focused on the linkages among geological and microbiological processes within submarine environments. Fundamental to understanding these complex systems is the ability to make detailed, integrated, microbiological observations in the context of the rocks that host these unique communities.